Doctoral Dissertation Research in Political Science: Formation of Armed Self-Defense Groups in Civil Wars

Many insurgents engage in acts of violence against civilians in rural areas during civil war. In the absence of protection from the state, some villages within those areas organize armed groups to defend themselves against such violence. This project investigates the formation of these armed self-defense groups.

The formation of armed self-defense groups is under-studied and yet it is also significant and not uncommon phenomenon in civil war. Examples of conflicts in which armed self-defense groups have emerged include the civil wars in Algeria, Kenya, Peru, Sierra Leone and Sudan. Recent analyses have documented the prevalence of insurgent violence against rural villages. These studies have concentrated on explaining such violence but have neglected variation in civilian response.

This project conducts an in-depth comparative analysis of four rural villages, located close to one another, in southwest Sudan. The ethnic composition and level of insurgent threat was similar across the four villages during the early years of the civil war in south Sudan (1983-2005). Yet only two communities created armed self-defense groups. The project combines in-depth interviews, formal models, and network analysis to identify the process--events, actions and decisions--underlying the formation and non-formation of armed self-defense groups.

Armed self-defense groups can have two important effects on the evolution of civil wars. First, armed self-defense groups hinder insurgent action. Insurgents often need civilian support--forced or voluntary--for food, new recruits and intelligence. Armed self-defense groups usually form an obstacle to such support. Second, armed self-defense groups often come to play an important role in the state's counterinsurgency campaign. In the absence of weapons and military know-how, communities under threat typically resort to the state or to local army commanders to receive the material support and training that are necessary to build and sustain their armed self-defense groups. The state predictably demands some level of control in exchange for its support. As these exchanges continue, armed self-defense groups become co-opted by the state, developing into government sponsored militias that conduct offensive operations against the insurgents for the state.

This project has implications for general policy debates around disarmament, demobilization and reintegration (DDR) of former combatants, and for more specific policy debates around the future of south Sudan. There is a trend in debates over DDR towards the development of programs that are sensitive to local power dynamics. This project's identification of reasons and conditions underlying the initial armament of civilians fits within this trend and could inform DDR efforts. As for the future of south Sudan, many policy makers are concerned about the resurrection of government sponsored militias in the south. This project’s capacity to shed light on the origin of those militias should facilitate the production of policy responses to resurrection threats.